Summer Faculty Internship in Tribology

A six-month program is planned for the summer faculty internship award in tribology. The major objective of the training/research program is to acquire in-depth knowledge of the experimental and computational research in tribology, particularly in the areas of fluid inertia and viscoelasticity, thermal effects, such as instability and property variation, thermal interaction between the fluid film and surrounding environment, and high-resolution computational techniques. The Institute for Wear Control and Tribology at Rensselaer Polytechnic Institute will act as the host institution for the training and research. A long-term computational and experimental research strategy will be developed for complex thermohydrodynamic problems of greater concern and immediate attention.